Acquisition of Instrumentation for Organelle Molecular Biology Research

The Organelle Molecular Biology Group at the University of Southern Mississippi is composed of seven energetic young investigators with common research interests and goals. The Group's ultimate research goal is to understand communication between subcellular compartments at the molecular level. This goal encompasses three essential biochemical processes in organelles-- DNA replication, transcription, and translation. We are particularly interested in the regulatory controls exerted by the nucleus on the organelle and vice versa. The two best studied organelles, chloroplasts and mitochondria, are the chosen subjects in a variety of eukaryotes. Funds are solicited for (1) expansion of the present capabilities for centrifugation, radioisotope counting, autoclaving, and dishwashing, and (2) the acquisition of research instrumentation that is not currently available (French pressure cell and fluorescence spectrophotometer).